CAREER: Fundamentals of Welding Intermetallic Compounds and Alloys

9702448 Acoff This CAREER research plan addresses the autogenous weldability of intermetallic compounds using gamma TiAl as the model material. Objectives of the research are: (1) Development of fusion welding processes for cast and wrought alloys of intermetallic compounds using autogenous welding, identifying the causes of cracks and voids; (2) Determination of the effects of energy input on the weld microstructure and the mechanical properties (hardness, fracture toughness, tensile properties); (3) Simulation of the autogenous fusion zone and heat-affected zone microstructures using computer modeling to predict weld and heat-affected zone microstructures and properties. The educational plan of this project complements the research plan outlined above. Objectives of the proposed educational plan are: (1) Enhance the undergraduate materials curriculum with increased computer simulation and modeling; (2) Involve undergraduate minority students from Stillman College in research activities; and (3) Attract minority students to graduate study at the University of Alabama. %%% As a class of materials, intermetallic compounds and alloys are of technological interest because they are lightweight and maintain high strengths at elevated temperatures (over 1100 C). One such intermetallic compound, gamma-based titanium aluminide, has been of particular interest because its properties demonstrate excellent potential performance in aerospace, structural, and high temperature applications. ***